Dissertation Research: Subsistence Economy and Chiefdom Emergence in the Muisca Area

Muisca societies located in the central mountains of Colombia impressed early Spanish arrivals in the sixteenth century with the power and level of respect commanded by their chiefs and the quality and variety of the crafts their artisans produced, sometimes from raw materials obtained from other regions. Early Spanish accounts especially emphasize the "advanced" economic development of Muisca societies, with what seemed to European eyes especially well organized and flourishing trade and dense populations that were well provisioned despite the fairly cold, wet, high-elevation zone they inhabited. As several regional chiefdoms in northern South America have been studied archaeologically, it has often turned out that their subsistence and craft economies do not involve very high degrees of trade, tribute, or household interdependence. This emerging pattern contrasts with sixteenth-century descriptions of the Muisca. The archaeological evidence of Muisca societies has provided at best only incomplete confirmation of the descriptions in historical sources, particularly in regard to the development of local, regional, and supra-regional patterns of economic interdependence and the importance of such an economy to the emergence of chiefly power.
One aspect of economic interdependence specifically discussed in the historical sources, however, has been subject to very little archaeological investigation. This is the agricultural exploitation of warmer low-elevation zones located quite close to some of the principal Muisca chiefly centers. In these areas higher temperatures led to greater productivity as well as protection from the frosts that were a constant risk to agriculture in the Muisca heartland. There are detailed sixteenth-century historical accounts of the importance of these resources for sustaining the very high population densities of the Muisca heartland, high densities fully attested to by both historical and archaeological information.
Under the supervision of Dr. Robert D. Drennan, Pedro Argüello will carry out a systematic regional survey of some 100 sq km in the Tena region on the slopes leading down from the western edge of the Muisca heartland toward the valley of the Magdalena River. The Tena region, which ranges from 2200 m above sea level down to about 700 m, is specifically mentioned in sixteenth-century documents as a major source of agricultural produce for the Bogotá chiefdom. If its agricultural resources were increasingly intensively exploited as Muisca chiefdoms emerged and developed and population levels in the high-elevation Muisca heartland grew, this will be reflected in changing patterns of distribution of human occupation in the Tena region. Such a result would provide stronger support for the historical accounts of one of the economic foundations of Muisca chiefly power than has been forthcoming from archaeological investigations of other aspects of Muisca economy. It would help to explain the relatively late but extremely rapid development of the Muisca chiefdoms and to position these societies properly in comparative analysis of the pathways toward the consolidation of political power in general.
This project will also have broader impacts. First, it will make a vital contribution to the training of the doctoral candidate as well as to undergraduate students from several Colombian universities who will take part. Second it will contribute to the public appreciation of science through presentations to local communities as well as provide information that will enhance local authorities' efforts to protect their cultural heritage.